Acquisition of a High-Performance Computer for Mathematical Sciences Applications

The Department of Mathematics and Statistics at Utah State University will purchase an eight processor Silicon Graphics worhstation which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for many research projects, including: * Enhanced methods for predicting high-dimensional multivariate time series. * Computational modeling of groundwater flow in fractured material and fault zones. * Computational modeling of temporal-spatial population dynamics of insect infestation, with applications to forest management. * New statistical methods for the understanding and control of dynamical systems, with applications to combustion and fluid flow. * Numerical methods for large-scale nonlinear systems, with applications to fluid dynamics and reactive flows.